Presidential Young Investigator Award: Intelligent Robotic Systems

The overall objective of this research is to study the problem of how to design control systems for motion control which are equipped with capabilities of motion planning, regulation, and learning. The first phase of the work will explore fundamentally new approaches to analysis, design, and implementation of automatic control systems, which are made uniquely possible by modern digital systems. Special emphasis will be placed on hierarchical designs which clearly separate the function of task planning from that of performance regulation in a control system. Specific ideas to be studied include: real-time, model-based, trial-and-error method for planning; deliberate nonlinear algorithms for high performances; different world models and representations of sensing data for controllers at different hierarchical levels; and hierarchical algorithms for task planning. These ideas will be analyzed theoretically and tested numerically with the simplified problems. An overall design for robotic arm control based on these ideas will be produced and tested on a specific arm model.